Hierarchical Program Analysis in High Performance Compilers for Parallel Computers

New strategies for compiling large numerical programs will be explored in this research. The use of hierarchical control flow graphs to facilitate fast information propagation will be the major technique employed. This will exploit hierarchies in program control thus allowing automatic parallelization in high performance computing. A new compiler will be developed in order to demonstrate the significance of this approach.